Synthesis and Characterization of Model Oxides and Mixed Metal Oxides

"Model" oxides are nonporous, submicron-sized particles with regular shapes (spheres or cubes) prepared by metal evaporation. They are low-surface-area analogs to the high- surface-area oxides used as heterogeneous catalysts or catalyst supports. The simpler geometry of the model oxide powders permits better characterization of bulk and surface structures. In this work, the structure and catalytic reactivity of model alumina powders are compared to those of the high-surface-area alumina used industrially. Since defects are thought responsible for much of the activity in disordered alumina, they will be introduced into the model alumina (using neutron bombardment and other techniques) and their effects on catalytic activity will be observed. A series of model oxides (alumina, silica, titania) are also used as supports for other dispersed phases (oxides and sulfides) and the structures of the overlayers, the mechanisms of solid-solid wetting, and the natures of the ceramic-ceramic interfaces are studied. An attempt is also made to extend the metal evaporation techniques to the preparation of powders of mixed oxides, initially of aluminum titanate. This work provides fundamental information that can be used in the design and engineering of ceramic materials and heterogeneous catalysts. It also elaborates the effects of atomic-scale defects on catalytic activity and ceramic bonding. Synthesis of new ceramic materials is also a possible result of this work.